Communication/Navigation Outage Forecasting System (C/NOFS) Science Workshop; Breckenridge, Colorado; May 18-20, 2010

This project supports a workshop to bring together the Communication/ Navigation Outage Forecasting System (C/NOFS) Principal investigators and Guest Investigators, theoreticians, data analysts, and equatorial ionospheric physicists from the industry, academia, and government agencies. The presentations include results from the (C/NOFS) satellite, as well as other ground and space instruments such as RAIDS. Presentations highlight critical new insights into current understanding of the dynamics of the Ionosphere- Thermosphere (IT) system. The workshop goal is to identify the most important research challenges and develop strategies to address them.